Biodiversity and Systematics of the Rhacophorid Anuran Radiation in Sri Lanka

PUBLIC ABSTRACT
DEB 0345885
Schneider

Sri Lanka is a small island nation off the southern tip of India. Together with
the Western Ghats region of southwestern India, Sri Lanka is recognized as one
of the world's biodiversity hotspots - an area with enormous species diversity
and endemism, but also a high degree of threat to natural habitats. Sri Lanka,
like much of the developing world, has experienced significant loss of it's once
extensive rainforests. In fact, only about 5% of the islands rainforest
remains, typically in small isolated fragments. Thus it was surprising that the
remaining rainforest of Sri Lanka is home to a large number of previously
unknown frog species. Surveys by the Wildlife Heritage Trust of Sri Lanka over
the past ten years revealed that there likely are over one hundred species of
small terrestrial frogs endemic to the island. These frogs do not require free
standing water in which to rear tadpoles - instead, they have no tadpoles and
the embryos develop completely within eggs laid on land and from which fully
formed froglets emerge. This mode of reproduction is known as
direct-development and has evolved only about eight times in frogs making the
Sri Lankan species even more unique.

The purpose of this project is to fully document the frog species diversity in
Sri Lanka as a first step in developing conservation measures to ensure that
this unique radiation of frogs is not lost to future generations. We are using
a variety of methods to identify and describe the new species and to determine
their evolutionary relationships, including: DNA sequences, call recordings, and
analyses of morphology and ecology. With funding from NSF we are now able to
carry out a comprehensive survey of the island's frog fauna and analyze and
describe in detail the many species that make up the remarkable radiation of
direct-developing frogs in Sri Lanka. In close collaboration with the Wildlife
Heritage Trust of Sri Lanka, we are working to train a new cadre of Sri Lankan
experts who will form the core of the nation's initiative to catalog and
preserve its natural heritage. This study not only contributes to basic
understanding of amphibian diversity in one of the world's biodiversity
hotspots, but also helps to build the infrastructure to ensure its preservation.